Granulosa Cell Functions During Follicular Maturation

In the ovary of the domestic hen, as in other females of reproductive age including humans, there are many thousand immature eggs or oocytes. Only a relatively small portion of these eggs will grow and mature. The hormonal mechanism responsible for an orderly development of ovarian follicles containing the oocyte is poorly understood. Evidence gathered in the past decade or so indicates that under the influence of a hormone (LH), a certain type of follicular cell(granulosa cell) produces a steroid hormone (progesterone) that is essential for ovulation to occur. This grant proposal deals with the cellular and molecular mechanism underlying this important step in female reproductive physiology. Various experimental approaches will be used to study the transduction of LH.generated signal across the cell membrane of granulosa cells and the subsequent biochemical reactions that may be involved in this process. Specifically, the way in which these cells handle calcium ions, believed to play key functional roles in many cellular processes will be quantitated by up to date technical procedures. Modern breeding, husbandry and nutrition have maximized the productivity of egg.laying chickens. Any further improvement which may reduce the number of non.laying days/year and thereby further increase productivity is expected to come from new discoveries in reproductive biology of this important meat and egg.producing domestic species. In addition, the information generated by this project regarding basic physiological processes may be applicable to other species, there by providing some new insights into ovarian physiology in general.